CAREER: High-Performance Computing for Computational Science and Engineering

The primary emphasis of this Career Development Plan is the coordinated development of research and education programs in high-performance computing for computational science and engineering. Research Plan: The main goals of high-performance computing are high-performance, scalability, and portability. To attain these objectives for modern scientific and engineering applications, new hardware paradigms, new software methodologies, and new numerical algorithms are needed. Moreover, the interdependencies between hardware, software, algorithm, and application have an essential bearing on performance, scalability, and portability and must also be well understood. This work is an inclusive effort to create a substantial, unified base of understanding about high-performance computing for scientific and engineering applications that can be broadly applied. The specific objectives of this work are to: (1) Develop and analyze high-performance, portable, computational kernels and numerical libraries that are capable of exploiting modern computing architectures and operating systems, such as symmetric multiprocessors, operating systems, and gigabit networks; (2) Develop and analyze prototype object-based and object-oriented scalable software libraries for high-performance computing and for computational scientific and engineering applications; (3) Develop and analyze new algorithms for maximizing the scalability of stationary and time-dependent problems; (4) Apply the new algorithms and software libraries to real, substantial, computational science and engineering applications. Education Plan: Because of the increasing importance of computational science and engineering, it is important that computer scientists (and indeed, scientists and engineers in general) understand the intricacies and inter-relationships inherent to high-performance computing. A graduate course in numerical computing has already been developed and incorporated into the graduate core curriculum in the Computer Science and Engineering program at the University of Notre Dame. Building on this course, new graduate-level courses in high-performance computing will continue to be introduced. At the undergraduate level, a senior elective in high-performance computing is being introduced, and there will be continued effort to support and direct undergraduate research.